Collaborative Research: Immersive Audio-visualization of Seismic Wave Fields in the Earth (EarthScope Education & Outreach)

The core of this project is the development of a methodology (software
and hardware) to produce synchronized visual and sonic representations
of seismic wave fields in the Earth. Coupling these senses enables
people, from the general public to seasoned seismologists, to
appreciate and perceive an enormous richness in the patterns of
seismic wave fields. The aim is not to simulate the experience of an
earthquake, but to render the physics of wave propagation in the globe
and the nature of earthquake physics into a completely tactile
experience, unlike anything anyone has ever perceived. The working
group is comprised of earth scientists, astrophysicists, sound and
graphics engineers and educators, from the Lamont Doherty Earth
Observatory (LDEO), Princeton University, and the American Museum of
Natural History (AMNH).

The images and sounds are generated from both USArray and GSN data, as
well as from simulations generated with the spectral element method
(SEM), using the SPECFEM3D software. Sounds are generated by shifting
the frequency of the seismic signal into the range of human hearing,
and are filtered and stretched in time to optimize the coupled visual
and sonic effects. Once the methodology is in place, it will take two
general forms:

First, a web-based format that allows people to choose earthquakes and
seismic data to listen to, with images produced by either a dense
array of seismometers (i.e. the ground motion visualizations (GMVs)
produced by IRIS of the Transportable Array data) or a simulation of
the seismic wave field (i.e. by SPECFEM3D). This format will be useful
for classroom and laboratory purposes, and interactive museum
exhibits, as well as for exploratory observation of raw data by
seismologists.

Second, a version will be developed for the Hayden Planetarium at the
American Museum of Natural History, in New York City. The images,
projected on the planetarium dome, will include the surface of the
Earth rendered as a membrane and also a volumetric rendering in which
the observer will see 3D wave fronts propagating throughout the globe.
The sounds will be tuned to the large speaker array in the
Planetarium. Within the context of this project, several Public
Programs will occur in the Planetarium, in which the immersive
experience of listening to the Earth will be guided by the production
team. These Public Programs are the essential first step towards
developing a full planetarium show on the dynamics of the Earth at
AMNH.